U.S.-Korea Cooperative Research: Ionomer Polymer Networks and their Application to Soil Remediation

0090356
Cohen

This award supports Professors Claude Cohen and Michael L. Shuler, Department of Chemical Engineering, Cornell University, to conduct collaborative research with Professor K.D. Suh of Hanyang University and Dr. J.Y. Kim of Samchok National University, Korea. This joint project aims to synthesize and physically characterize the properties of ionomer polymer networks. Incorporation of a small concentration of ions into the chemical structure of polymer chains can greatly influence physical behavior. This study on the effects of precursor molecular weight, ion content, nature and concentration of the solvent during crosslinking, and pendent defects will serve as a basis for a fundamental understanding of the structure-property relations of ionomer networks and for the synthesis of new materials. The researchers will then work to synthesize nano-particles of cross-linked ionomer polymers for application to soil remediation.

The Cornell researchers provide expertise in polymer physical science and engineering, while the Korean strengths in industrial chemistry and materials science provide the tools of chemical synthesis needed for production of the novel materials to be investigated. The complementary expertise and facilities of the American and Korean laboratories promise synergistic advances in the research.